Free Boundary Problems for Systems: Toward a Comprehensive Theory of Computation

This proposal investigates a new class of systems, formulated in terms of
time dependent and stationary partial differential equations. The systems
have inherent switching properties, leading to their interpretation as free
boundary problems. What defines them as new is their characterization as
systems rather than scalar equations, underscoring interlocking, complex
dependencies. This work, part of which is joint with Siegfried Carl,
extends the work of many mathematicians who have worked on free boundary
problems for scalar equations during the last four decades. Systems of
free boundary problems are associated with such diverse models as
change of phase, semi-classical band gap theories, threshold switching,
and combustion. Using significant models for illustration, we employ
a multi-tiered analysis, permitting the development of an infrastructure
for analysis and computation. The principal investigator and Michael Rose
introduced the initial comprehensive finite element study of the two-phase
Stefan problem in 1982. In this proposal, iteration and discretization
are studied as companion entities. A particularly significant aspect is
the identification of the system map and its efficient approximation
via smoothing and linearization. The cooperation of Monica Torres has been
secured to study the interface of these systems with homogenization
theory and the theory of fully nonlinear partial differential equations.

Mathematical models of free boundary problems build upon a rich tradition.
Free boundary problems were studied intensively during the 1970s and
1980s. A major impetus in the U.S. was the construction of the trans-Alaska
pipeline, which required knowledge of the complex process of melting
of permafrost. The free boundary refers to the so-called mushy region
between solid and liquid phases. A mathematical model of temperature,
called the two-phase Stefan problem, was employed for this purpose. One of
the principal contributors to this effort was John Wheeler of the Exxon
Corporation. Progress was slow in coming in the modeling of systems,
where several effects may be present. Associated free boundary problems may
arise in many application areas, due to discontinuous switching induced by
sources or sinks within the system. An environmental example is the
discharge of a contaminant species into a river, the regulation of the
discharge, and the ensuing response of control mechanisms to ameliorate the
discharge. Sophisticated systems of partial differential equations,
incorporating physical principles describing the contaminant density and
the river temperature, are utilized, and include the switching phenomena.
The incorporation of quantum principles into models of nanostructures also
induces switching and free boundary problems, as does the study of certain
processes of combustion. Another application of these ideas, which
is not pursued in this proposal, is the pricing of certain financial
instruments. An area of broader impact of the proposal has been identified
in relation to the international community sponsoring the Workshops on
Computational Electronics. The principal investigator has been an advisory
panel member since 1990, and details of some of this work, part of the
effort toward making quantum computing possible, will be disseminated to
the community at a regularly scheduled workshop, and in the journal,
Computational Electronics. Publication will also occur in regular
mathematics journals.